Elementary, Secondary, and Informal Education: Technology Teacher Inservice Education

This project will create, pilot, field-test and disseminate standards-based Professional Development materials that will support in-service needs of practicing technology education teachers. The Standards for Technological Literacy have been published, and this project will help teachers to implement them in the classroom. A consortium of institutions will develop the materials. The materials to be produced include two content primers in biotechnologies and medical technologies, and a curriculum vision monograph that details what technology teachers must know and do to be effective in teaching.